Iterative Methods for Multiuser Detection: Impulsive Noise, Coded Channels, and Multiple-Antenna Sytems

Multiple-access communication channels arise in a great
variety of applications, among which are some of the most
rapidly growing areas of technology development today:
cellular telephony, wireless "last mile'' systems, indoor wireless
LAN's, nomadic computing, high-speed digital subscriber lines, etc.
New performance requirements are constantly being imposed
on such systems in order to provide high-quality, multimedia services
to an exponentiating user population. A major approach
to meeting these requirements is through the use of advance
signal processing techniques to mitigate the manifold physical
impairments arising in such channels. This research addresses
a number of key issues in this field.

Multiple-access channels arise in the above-noted systems as the
result of several physical conditions, including non-orthogonal
multiplexing in CDMA systems, cross-talk in xDSL systems,
multipath in TDMA systems, and co-channel interference in most
types of cellular systems. Multiuser detection, developed over the
past fifteen years, has provided a very useful theoretical basis for
the study of optimal signal processing problems in multiple-access
channels. This research is concerned with problems in which
multiuser detection must be combined with other signal processing
functions, such as beamforming, channel decoding, impulse-noise
mitigation, etc. The basic approach is to apply algorithms that
iterate between signal-processing functions. In particular, this
research examines the general structural and performance properties
of such algorithms, their implementation, and their application in
three specific technologies: indoor wireless networks, digital
subscriber lines, and underwater acoustic modems.